Three Dimensional Modelling of Unsteady Heat Transfer

ABSTRACT CTS-9417520 George Karniadakis A three-dimensional numerical model will be formulated, programmed, and carried out to predict the unsteady velocity, vorticity, and temperature fields in the wake behind a heated circular cylinder. The proposed numerical model more correctly accounts for the three-dimensionality of the flow, and comparisons with the results of more traditional approaches will be made. Comparisons for validity will also be made with the experimental measurements of a co-funded project.